Computational Ridgidity and Motion Planning

The investigator continues work on the Kneser-Poulsen
Conjecture that was started with Professor Karoly Bezdek. This
conjecture says that if any finite collection of disks in the
Euclidean plane is rearranged so that the distance between any
pair of centers does not increase, then the area of the union
does not increase and the area of the interesection does not
decrease. They have solved the conjecture in the plane, but many
higher-dimensional questions remain. For example, there is a
candidate for a configuration that might be a counterexample for
the analogous statement in three-space, and there are some
interesting possible differences between the case for a union of
disks and the intersection of disks. Another major topic is the
study of linkages in the plane that are locked in the sense that
they can only move a small amount without crossing. The theory
of frameworks and tensegrities plays an important role here and
can be applied to give reasonable criteria to detect when such a
linkage is locked. This is continuing work of the investigator,
Erik Demaine, and Gunter Rote, who originally solved the
carpenter's rule problem, which states that any polygonal arc can
be opened without creating any self-intersection.
The investigator works on certain basic, fundamental
questions about the geometry of discrete objects. Just as
physics asks fundamental questions about the nature of matter,
space, and the universe, and the physical laws they must obey,
geometry asks fundamental questions about how geometric objects
interact and the implicit constraints they satisfy. How does the
area of the union of round disks change as the centers are moved
apart? The investigator (with Karoly Bezdek) has shown that the
area behaves (it increases or stays the same) as expected in the
plane, but the situation in space is not so clear. When is a
robot arm in the plane rigid, and when can it be opened? The
investigator (with Erik Demaine and Gunter Rote) has shown that
arms open as expected in the plane, but what about more
complicated linkages? What can be said about the rigidity of
packings of round balls as a granular material? The investigator
is an expert in such matters, but there are delicate questions
about the rigidity in a container with a small number of disks.
The volume enclosed by a flexible surface is constant, but what
about other geometric invariants? These are concrete tangible
objects, but accessible to the appropriate geometric insight.
These questions are both relevant and potentially quite useful
for subjects as wide-ranging as cell biology, protein folding,
kinematics, and granular materials. For example, it is widely
believed that the geometric structure of a cell has a great deal
to do with its function. So the rigidity of appropriate discrete
objects is relevant. As has been shown over and over again in
physics and mathematics, if the questions are to the point,
applications follow.